MRI: Development of a Comprehensive Real-Time Instrument for MIMO Wireless Channel Measurement and Space-Time Coding Implementation

EIA-0079799
Swindlehurst, Arnold
Brigham Young University

MRI: Development of a Comprehensive Real-Time Instrument for MIMO Wireless Channel Measurement and Space-Time Coding Implementation

The primary goal of this proposal is the design, construction, and testing of a general purpose wireless communications platform that can be used for multiple transmit and receive antennas channel measurement and space-time coding algorithm assessment. The proposed instrumentation will be extremely flexible, allowing for variable array geometry, antenna spacing, bandwidth (up to 20MHz), carrier frequency (500MHz-20GHz), modulation format, polarization, and path distance. Two system configurations will be constructed, a tethered system for short range (<300m) indoor experiments, and another that permits longer range (300-5000m) outdoor experiments using GPS receivers for carrier phase lock.